World Resources Datascope

This project proposes to create an interactive computer program and database titled Datascope that will be a storehouse of environmental information. The most comprehensive data now available on natural resource and environmental issues in 146 countries of the world will be used as a source of information for this program. Students will be able to manipulate this database, add their own data and seek solutions to environmental problems with the aid of developed support materials and an education software program. The project is well designed and would make a valuable environmental database available in an interactive format that students could use in solving real problems. Students could gain experience in data manipulation, mapping, analysis, data use and understanding. Portions of the program could be used in the social sciences equally well. Methods have been outlined where WRI will work with TERC and the Canadian Space Agency to develop a student and teacher guide to data analysis and interpretation.